Replacement of Multidisciplinary Science and Engineering Laboratories with a Center for Interdisciplinary Research

Mtingwa North Carolina A&T State University has a long and distinguished record in graduating talented minority students in science and engineering, both at the baccalaureate and masters levels. In its quest to achieve academic excellence in science and engineering, the institution recently established a doctoral program in the fields of electrical and mechanical engineering. This program will significantly enhance the university's progress in its relation to scientific research excellence and the productivity of scholars trained in science and engineering. To help support the doctoral programs and expand its research programs, the university will create the Interdisciplinary Research Center (IRC), a single facility that will allow for the merger of several multidisciplinary laboratories in six major thrust areas: Materials, Manufacturing, Systems Engineering, Computing Systems, Agriculture Sciences and Social Sciences. The Center will support interdisciplinary research activities by faculty and students from the Schools of Engineering and Technology and the College of Arts and Science. This award will provide funding for the renovation of research and research training space for the IRC. Space will be reconfigured to house well-defined interdisciplinary research that is currently ongoing in cramped conditions. Supporting utilities will be routed vertically through common chases and distributed horizontally to the various laboratories, and new fixed equipment will be installed. The improved facility will expand the capabilities of researchers and students engaged in research activities, stimulating technological innovations and training in nationally strategic academic disciplines for the 21st century. Since North Carolina A&T State University is an Historically Black College and University, the renovated facility will have a substantial impact on increasing the number of underrepresented minorities and women entering the pipeline leading to advanced degrees in engineering and science.